MRI: Development of Instrumentation for AGAVE: The Access Grid Autostereo Virtual Environment

EIA-0115809
Thomas A. DeFanti
University of Illinois at Chicago

MRI: Development of Instrumentation for AGAVE: the Access Grid Autostereo Virtual Environment

This is a proposal for instrumentation development under the Major Research Instrumentation (MRI) program to support research and student training in tele-immersion technologies for a networked, collaborative virtual-reality environment. The focus is on AGAVE, a tiled, high-resolution autostereo display that integrates well with very-high-speed networks.